I-Corps: Translation Potential of a Synthetic, Biodegradable, Antibacterial Hemostatic Sealant for Trauma and Surgical Applications

This I-Corps project is based on the development of a sealant designed to rapidly control severe, life-threatening bleeding in surgical and traumatic wound settings. Uncontrolled bleeding is the leading cause of preventable death in both civilian trauma and military combat scenarios, contributing to approximately 30–40% of all trauma-related fatalities globally and costing the U.S. healthcare system billions of dollars annually. Current methods to control bleeding, including gauze-based packing, foam sealants, and biological fibrin glues, are limited by inconsistent performance in complex wound geometries, risk of disease transmission from animal-derived materials, or poor adhesion under wet, dynamic conditions. This technology is a synthetic sealant that conforms to irregular wound surfaces, adheres strongly to wet tissue, and rapidly forms a durable mechanical barrier to blood loss upon brief light activation. This may provide a better solution for uncontrolled bleeding in surgical applications, emergency medicine, and military medical applications and may result in better outcomes for patients.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a gelatin methacryloyl and dopamine methacrylamide-based nanocomposite hydrogel for hemostatic wound management. This technology leverages photo-initiated radical crosslinking to generate a mechanically more resilient, bioadhesive sealant with tunable properties, achieving adhesion strengths exceeding 40 kPa and elongation at break above 200%, outperforming commercially available surgical sealants. The incorporation of dopamine-derived catechol moieties enables strong wet-tissue adhesion through reversible covalent and non-covalent bonding mechanisms, while the synthetic polymer backbone eliminates immunogenic risks associated with fibrin or collagen-based products. Preclinical in vivo studies demonstrate 45–55% reduction in blood loss compared to standard-of-care controls, with no observed systemic toxicity. In addition, this technology has antibacterial properties stemming from the polydopamine nanoparticle component, providing adjunctive infection control in contaminated wound environments. This may translate directly to an increase in patient survival rate and reduction in total blood loss during the critical "golden hour" of resuscitation, improving patient outcomes and reducing institutional cost-of-care by offering potential cost savings.